The Mechanics of Thin Ligaments

9313094 Markenscoff High stress concentration occurs in thin ligaments between holes or inclusions (fibers) or between these and free boundaries, and this may be responsible for failure initiation in the material. The asymptotic behavior of the stress for thin ligaments will be established. ***